Stimulus Selection Effects in Conditioned Preferences and Aversions

NONTECHNICAL SUMMARY Capaldi, IBN 94-19986, Stimulus selection effects in conditioned preferences and aversions Many organisms, including humans, have strong food preferences and aversions which are important influences on diet. Most of these preferences and aversions are learned. The mechanisms involved in this learning are quite complex, involving both the sensory qualities (taste and odor) and the dietary value of the food. For example, rats can learn to prefer an arbitrary flavor (such as unsweetened cinnamon) if it is associated with a food that has either calories or a good taste (such as sugar). Previous work has suggested that tastes are more easily learned as the basis for aversions while odors are more easily the basis for learned preferences. Capaldi will carry out a series of experiments which will investigate the relationships between preferences and aversions on the one hand and odor and taste on the other in an attempt to determine why this might be the case. The results will reveal new information about learned food preferences and aversions, with important implications for both general learning theory and the understanding of the origins of human food choice.